Archaeological Science for All

This project will establish a research foundation for archaeological education in informal learning environments. It will investigate the use of archaeological content and concepts to help museums and other informal learning organizations increase and diversity their audiences. In addition to generating information and a data base, the effort will develop a research framework for presenting this subject to various public audiences with emphasis on underrepresented groups.

The plan is to develop and implement a Delphi survey for a variety of stakeholders, including 60 museums, to determine what they do to attract diverse audiences, what is needed to create effective archaeology learning opportunities, and how successful they have been in communicating archaeological content and concepts. The result will be a synthesis that informs a broad spectrum of the informal science education community.